Integration of Position Location Data with Computer Aided Design (CAD) Based Data to Provide Real-Time Imagery of CAD Data for Design and Construction Personnel

The research aims at technologies for integrating actual position data captured in real time with 3-D CAD based design data, to support integration of design and construction processes in respect to positioning of objects at a construction site. Research on measurement of position will center on a modulated radio frequency carrier phase-comparison technique. The resulting data will be compared with data from a CAD model to guide the construction process. A research team from the Departments of Civil and Electrical Engineering at Virginia Tech will collaborate with staff of the Bechtel Eastern Power Corporation and will use Bechtel's 3-D design system.